Innovations in Science Education: Learning from Case Studies

9355857 Lewis The proposal reflects a rich conceptual underpinning that suits the embedded cases study approach to be used. The goals and justification of the study are well conceived and should yield a contextually rich substantive and well-interpreted report. The research design is creative and has important implications for several audiences in the United States. The project's design will make it possible to sample a broad range of interventions such as notional schools and their role in teacher development, teacher study groups, research networks, etc.